Electronic Properties of Molecules and Oxide Layers on Silicon

Doug Doren of the University of Delaware is supported by the Theoretical and Computational Chemistry Program to develop and apply theoretical tools in order to explore the electronic properties of molecules and dielectric layers on silicon surfaces. He will use quantum chemistry methods to predict structures, charge densities, energy levels, and electron transport properties. He will focus on the conductivity of organic molecules covalently attached to semiconductors, and ultrathin layers of oxide dielectric materials on silicon.

The research goals are to develop the foundations for fundamentally new types of devices based on hybrid molecular/semiconductor materials and to understand the properties of dielectric/semiconductor interfaces for near-term use in microelectronics.